Optimization and Standardization of Chemistry Packages for use on Supercomputers

This proposal is for the support of an effort to further the development of selected Chemistry packages commonly used on supercomputers. The codes chosen for initial work are Gaussian 82/86, which was initially developed at Carnegie Mellon, and CHARMM, which came out of the Chemistry department at Harvard. These codes are responsible for a significant amount of the utilization at all of the NSF sponsored supercomputer centers and improvements will thus be of general benefit to the Chemistry community. The development is directed toward better vectorization on CRAY supercomputers; toward the utilization of efficient specialized subroutines for common numerical algorithms; and toward the utilization of the solid state storage device. The work is a cooperative effort among the PSC and the original authors of these codes.